SGER: Exploratory Fieldwork with the Nedebang Language of Eastern Indonesia

With National Science Foundation support, Dr. Gary Holton will conduct
six weeks of exploratory field work with Nedebang, an endangered
non-Austronesian language spoken by fewer than one thousand persons on
Pantar Island, eastern Indonesia. The project has three primary objectives: (1) to gather basic phonological, lexical, and grammatical information from which to compile a short sketch of Nedebang; (2) to conduct a survey of the grammatical and typological properties of the non-Austronesian languages of Pantar Island; and (3) to assess the feasibility of future longer-term field investigations of the languages of Pantar. Data and recordings gathered during the course of the project will be archived for use by other researchers.

The project is significant for three main reasons. (1) The Pantar
languages are currently being replaced by languages of wider
commuication. The timing of this research will ensure that information
regarding Nedebang and other Pantar languages is recorded before the
language ceases to be spoken. (2) The Pantar languages appear to belong
to the Trans-New Guinea language family, a putative grouping of more
than 500 languages spoken in the New Guinea region. However, their
precise genetic relationship is unclear. Data from Pantar languages will contribute to a better understanding of both internal and external
genetic relationships. (3) What data are available suggest that the
grammatical structures found in the Pantar languages differ
significantly from those found in other languages. The results of this
research will add to our knowledge of human language and linguistic
theory by providing detailed documentation of a typologically unusual
language.